Presidential Young Investigator Award

Research plans are 1. to continue theoretical investigations of the mechanisms of high temperature superconductivity, with special emphasis on magnetic mechanisms and novel approaches to the physics of strong coupling superconductors, and 2. to study the statistical mechanics of phase transitions in quantum and driven non- equilibrium classical systems.